Leadership Training Program for Secondary School Teachers in the History and Nature of Science and Technology

This 2 1/2 year project, sponsored by the Social Sciences Education Consortium Inc. (SSEC), will implement a curriculum, based upon the history and nature of science and technology (HNST), in selected school districts throughout the nation. The project is organized in three stages. The first stage consists of the development of a teacher education resource book based upon the HNST curriculum. the second stage consists of an intensive summer program for 40 teachers consisting of teams of teachers from the selected school districts. The summer programs will include content and pedagogy enhancement as well as preparation for the implementation of the curriculum. The third stage of the project consists of follow-up activities in the districts, development of inservice plans and implementation of the new curriculum in each district with the help of the resources of SSEC and the Biological Sciences Curriculum Study (BSCS). The NSF grant is being matched by SSEC and the school districts by funds equivalent to 46% of the NSF award.